Studies in Numerical Solution of Ordinary Differential Equations

Jackiewicz

It is the purpose of this project to study various acceleration
techniques for continuous and discrete waveform relaxation
iterations. These techniques include exponential, polynomial or
Toeplitz preconditioning and/or overlapping components of the
system. We will also study the construction and implementation
of novel numerical methods for ordinary differential equations
which are special cases of general linear methods. Such methods
are appropriate for nonstiff or stiff differential systems in a
sequential or parallel computing environment. These methods have
also higher potential to preserve qualitative properties of the
solution than classical methods. This potential will be exploited
to integrate wave propagation problems with absorbing boundary
conditions.

The research supported by this proposal will lead to the development
of modern software for the solution of many problems in science and
engineering which are governed by large differential systems. This
software will be based on novel numerical methods developed in the
past few years by the principal investigator and his coworkers and
will utilize modern computer architecture by splitting the underlying
large problem into smaller subsystems or subproblems which can then be
solved in parallel by allocating them to different processors.
Numerical experiments on many problems, for example, acoustic wave
propagation, chemical reactions, movements of a plate under the load
of a car passing through it, catastrophe model for the nerve impulse
mechanism, model that describes the dynamics of a system with large
number of particles which can form clusters, and reaction-diffusion
systems, indicate that these novel methods are more efficient and
robust and better suited to take advantage of the state-of-the-art
computer architecture than the methods which are currently in use for
these problems.